Workshop on Future Directions for Siting and Geotechnical Systems Research in Earthquake Hazard Mitigation; August 4-5, 1986; Chicago, Illinois

This workshop will address the challenges in earthquake hazard mitigation involving siting and geotechnical systems, and the basic research that is needed to address these challenges. Emphasis will be given to identifying especially innovative ideas, or ideas involving high risk/high return which would generally be considered too risky to receive unqualified peer approval. Approximately 100 participants are expected to attend, with one half being current grantees of the Siting and Geotechnical Systems Program, while the remainder will be drawn from academe, industry, national laboratories, distinguished foreign researchers, and representatives from the funding agencies. The participants will be divided into groups of approximately 10 people, and each group will address a current challenge in earthquake hazard mitigation and will be charged with identifying and recording the steps to be taken to meet this challenge.